SBIR Phase II: Simulation of Rapid Thermal Processing in a Distributed Computing Environment

This Small Business Innovation Research (SBIR) Phase II project will continue to develop and demonstrate a computational tool for detailed simulation of Rapid thermal processing (RTP) in a distributed computing
environment by taking advantages of the findings in Phase I. RTP has become a key technology in the
fabrication of advanced semiconductor devices. As wafers get larger and chip dimensions smaller, the
understanding of the highly coupled physics such as radiative heat transfer, transient fluid flow and heat
transfer as well as chemical reactions through numerical modeling using high-performance computing is
the key to the design, optimization, and control of RTP reactors. In Phase II, A 3D surface radiation
model based on the modified discrete transfer method (MDTM) will be developed to treat radiative
transfer in the lamphouse and process chamber as a whole process. The detailed pattern effects will be
taken into account by rigorously solving time-domain Maxwell's equations through a finite volume
approach. The rarefied gas dynamics in low pressure RTP will be modeled by adding Burnett terms into
the Navier-Stokes equations. The governing equations that contain various multi-disciplinary physical
models will be solved by a 3D unstructured finite volume method. To address computationally intensive
3D simulation needs, an efficient parallel strategy will be implemented in the solution procedure. Data
communication among parallel processors will be conducted by the Message Passing Interface (MPI)
library. To accelerate the overall solution convergence and improve the parallel performance, the
algebraic multi-grid (AMG) method will be used to solve the discretized equations in each processor. It is
expected that the proposed simulation tool can be used to systematically investigate the underlying
physics occurring in RTP systems, and to help in the design, optimization, and control of RTP reactors.

The proposed simulation tool will significantly benefit the semiconductor manufacturing equipment industries that require a detailed understanding of multimode and highly coupled transport phenomena. The potential applications include the design, optimization, and control of RTP reactors and many other manufacturing and materials processing systems.